CADRE: A Robotic Control Network for Distributed Experimentation

EIA-0079875
Kitts, Christopher A.
Santa Clara University

CADRE: A Robotic Control Network for Distributed Experimentation

Santa Clara University is developing a Distributed Robotic Control Network for use as an experimental control system for a variety of remote, unmanned robotic devices. This system supports the operation of remote robots with scientific and technology demonstration missions. In addition, the system permits experimental verification and validation of new operational control techniques. The control network will consist of a centralized mission control center, several low-cost communications stations, a Web-based user interface for distributed users, interfacility communications links, and a few low-cost test robots that can be used to demonstrate system functionality. The system will be designed and implemented to specifically support the work of geographically distributed researchers.